Tidal Predictions for Palmer Station, Antarctica

9316777 Amos The proposed project will establish a tide gauge at Palmer Station, with the capability of providing real time sea level observations. These will be used for both ship operations and research purposes; the accumulating data base will be used to compute tidal constants for Arthur Harbor. ***